Engineering Research Equipment Grant: Ion-Milling Machine & Accessories

The ion-milling machine, with accessories and ancillary apparatus will be used for the preparation of thin foil specimens suitable for examination by transmission electron microscopy (TEM), such as precipitation strengthened ZnS, various refractory metal silicides and glassy materials containing microscopic pores, as well as proton irradiated intermetallic compounds to be examined in cross-section. The proposed apparatus will also enable the routine examination of the microstructures of deformed ceramic materials, metal and ceramic matrix composites and metallic alloys that are sometimes inadvertently coated with an oxide layer after conventional electropolishing. More exotic cross-sectional TEM specimen preparation of electronic device materials prepared by MBE, and oxide substrates on which small metal clusters have been deposited, is expected to become a possibility as a consequence of the acquisition of the proposed apparatus.